Dynamic Amplification of Surface Ground Motion and the Response of Buried Pipelines and Tunnels to Earthquake Loading

The aim of this research is to investigate the effect of geological strata in modifying the strong ground motion experienced by tunnels and buried pipelines during earthquakes, as well as in amplifying the ground motion at the surface. The specific strata considered is that of layered deposits.